Theoretical Study of Transport and other Processes in Metals and Alloys

It is proposed that this project continue its research on the theoretical study of transport and other processes in metals and alloys. Five specific projects will be investigated. 1. They will continue their investigation of transport in random substitutional alloys. They will concentrate on understanding the dc electrical conductivity and thermopower in these materials. They will also investigate other transport phenomena in random and disordered alloys. 2. They will study the relationships between the theory of transport in random alloys (i.e. the theory that they are using for their calculations) and theory of so-called "weak localization." They will see if it is possible to merge these two theories. 3. They will study the phenomena of resistivity saturation in which there is a maximum possible resistivity in a metal or alloy (the Mott theory). 4. They will carry out calculations on the electronic properties of a model of an amorphous alloy (metallic glass). 5. They will complete their theoretical investigation of radio-frequency-size effect in the metal cadmium. They plan to carry out extensive calculations on the Illinois supercomputer.